Integration of Fourier Transform Nuclear Magnetic Resonance into the Undergraduate Chemistry Curriculum

This project is integrating nuclear magnetic resonance (NMR) theory and practice into the undergraduate chemistry curriculum. Initial experiments in organic chemistry laboratories focus on the interpretation of H1, C13, and NOE (Nuclear Overhauser Effect) spectra and how to elucidate structure using information obtained from chemical shifts, splitting patterns, coupling constants, and integration ratios. In subsequent coursework and laboratories, the nature of the FT-NMR experiment and instrument operating variables is being examined and problems involving reaction kinetics, magnetic moments of paramagnetic compounds, intramolecular rearrangements, 2-D methods, and other applications are being studied. Instruction of inexperienced undergraduates in the operation of the FT-NMR spectrometer is being augmented by video tapes that describe safety around magnets, sample preparation, instrument setup with step-by-step computer commands for the various experiments, data acquisition and processing, and the presentation of the spectra. The department additionally is conducting an outreach program whereby students at nearby colleges are invited to our campus for NMR workshops and summer research opportunities.